Collaborative Research: New Heat Flow Values at PBO Borehole Strain Meter Sites: Implications for Deformation

The overarching goal of EarthScope is to elucidate the dynamics and evolution of the North
American continent. To reach this goal, focused studies of the continental seismic structure, the
strength of the lithosphere and modes of deformation, the patterns of stresses and strain and the
manner in which the lithosphere responds to excitation during earthquakes are all a high priority.
The common factor linking these EarthScope objectives is the thermal state of the lithosphere.
Heat flow observations provide the strongest observational constraint on the thermal state of the
lithosphere. Given the relevance of subsurface thermal conditions to the physical processes
governing the spatial and temporal variations of lithospheric deformation, a greater knowledge of
the subsurface thermal regime will contribute greatly to the overall objectives of EarthScope
generally, and the Plate Boundary Observatory (PBO) experiment specifically. We will collaborate (Oregon State University, University of
Utah and U.S. Geological Survey) in a thermal investigation of the active plate boundary between the Pacific and North American plates in the western United States. Thermal measurements will be
collected in PBO boreholes currently scheduled for drilling. The field component consists of
thermal logging and the determination of thermal physical rock properties. Holes will be logged
between the end of drilling and the beginning of strainmeter installation so as to not disrupt PBO
operations. Thermal physical rock properties will be measured using modern laboratory
techniques. For both logistical and economic reasons we limit this proposal to boreholes drilled
in California which includes important EarthScope targets such as the San Andreas Fault System
(SAFS), Long Valley, and Mt. Shasta/Medicine Lake areas. However we will make every effort
to log strainmeter boreholes scheduled for drilling in the Pacific Northwest.
The importance of thermal processes for EarthScope was highlighted in
two workshops, "Complementary Geophysics", and "Thermal Processes in the Context of
EarthScope". Additionally, the PBO steering committee has recommended that temperatures be
logged in strain meter boreholes in the 2004 PBOSC Annual Review. We propose to collect and
disseminate these important data. Broad societal areas of this research include a better
understanding of faulting especially the San Andreas, and anthropogenic climate change.
Further this proposal fosters collaborations between the academic Earth science community and
the USGS. The proposal will be used to educate and train a graduate student. Results from this
proposal will be disseminated through the EarthScope web site, national and international
meetings, and peer reviewed literature.